Purchase of a Nuclear Magnetic Resonance Spectrometer Console

This award from the Chemistry Research Instrumentation Program and the National Instrumentation and Facilities Program of the Division of Materials Research will help the Department of Chemistry and Biochemistry at Arizona State University acquire a console for a 400 MHz Nuclear Magnetic Resonance spectrometer which will be used in the following research projects: structural and dynamic studies of silicate glasses and solid electrolytes, the synthesis and characterization of advanced ceramic materials, artificial photosynthesis and solar energy conversion, mechanisms for the repair of photochemically damaged DNA, the nature of macromolecular organic materials of extra-terrestrial orgin, the role of NMR in computer-enhanced structure elucidation, and the synthesis and complete structural determination of complex natural products and transition metal complexes. %%% Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research.